Profile Driven Architecture for Data Management in Pervasive Environments

The constant enhancements in capabilities of palmtop, embedded and
wearable devices, together with the advent of pervasive connectivity,
represents a new paradigm for interaction among devices. A new vista
is open for research in the area of mobile data management where
mobile devices gather and exchange information from not just wired
sources, but also their environment and one another. Each device is
both a data source and a data consumer pursuing its individual and
collective tasks. New ideas are proposed for a research program aimed
at realizing ubiquitous computing systems based on the cooperation of
autonomous, dynamic and adaptive components (hardware as well as
software) which are located in vicinity of one another. This is
significantly different from ``infrastructure-based'' mobile
client/server computing between PDAs and network services. The
proposed research will enable a new class of applications that
effectively exploit mobility and pervasive computing. New prototypes
and applications will be built in the context of mobile information
management within dynamic communities of ad-hoc services and
devices. The research team is part of the eBiquity research group
located at The University of Maryland, Baltimore County (UMBC) and
will closely interact with collaborators from industry including IBM,
Fujitsu, and HP.